Integrating the First Two Years of Mathematics at Two and Four Year Colleges

9353938 Williams As a result of the calculus reform movement good curriculum materials which involve the use of technology, modeling, and problem solving are now widely available for the first two semesters of calculus. Similar materials are also becoming available for courses which lead into calculus like precalculus and college algebra. In this project a coalition involving both two- and four-year colleges and universities in Connecticut is working to integrate the materials and approaches so that students taking a reformed precalculus course can move into a reformed calculus course with an expectation of continuity. It is particularly important both two-year colleges and four-year colleges and universities are involved in this process because many students take precalculus at two-year colleges and then transfer to a four-year institution for calculus. Three different workshops are being held in each of two summers on precalculus and algebra, first two semesters of calculus, and calculus of several variables and differential equations for instructors at two and four-year colleges and universities. In addition, key faculty at 7 institutions are identifying and evaluating materials for precalculus and calculus and developing further materials which assure a smooth transition of students between the identified courses. ***